Mathematical Sciences: Numerical Solution of Spectral Problems for Efficiently Structured Hermitian Matrices

A family H of Hermitian matrices is efficiently structured if it contains members of every order n and the number of independent parameters required to specify an arbitrary n x n member of H is O(n). Hermitian Toeplitz matrices and real Hankel matrices, for which the element in the i-th row and j-th column depends only on i-j or i+j, respectively, are efficiently structured. Matrices of the form A+B, where A is a Hermitian Toeplitz matrix and B is a real Hankel matrix, are also efficiently structured, as are Hermitian matrices of a given displacement rank, i.e. Hermitian matrices which can be written as the sum of a fixed number of products of upper and lower triangular Toeplitz matrices. There are two interesting spectral problems for efficiently structured matrices: (a) the ordinary eigenvalue problem; i.e., finding the eigenvalues and eigenvectors of a given efficiently structured matrix by methods which take specific advantage of the simple structure, and (b) the inverse eigenvalue problem; finding a matrix in a given efficiently structured family which has as its eigenvalues a given set of real numbers. The objectives of the proposed research are to consider these two problems, which are both in relatively primitive stages of development.